Modernization of Instrument-Based Chemical Laboratory Education

The quality of chemistry course offerings is being improved both in terms of coverage as well as in facilities and equipment. Accordingly, a complete renovation and reassessment is being made to upgrade and improve the general and organic chemistry courses currently offered with special emphasis on instrumentation. The PI is spearheading the major improvement plan. The major equipment being added to the basic general and organic chemistry laboratories includes a computer and accessories, a student model gas chromatograph, an infrared spectrophotometer, balances, pH meters, a polarimeter, a Spectronic 20 as well as other minor items. The introductory and organic lecture sequence is also being totally revised to reflect the availability of the new equipment. The grantee is matching the award from non-Federal sources.